ITW: Retaining Women in Computer Science Programs: The Impact of Pair-Programming

This CISE Information Technology Workforce (ITW) proposal requests funds to examine the effects of pair-programming on female students' perceived self-confidence and interest in computer science as well as their retention and achievement in these courses. Approximately, 400 students enrolled in introductory computer science courses will complete a series of programming assignments in pairs (same and mixed gender pairs) or independently. It is hypothesized that women who program in pairs will produce better programs in terms of functionality and readability, report greater confidence in their solutions, enjoy programming more, and have higher retention rates in computer science and related areas than women who program independently. This project has the potential to provide valuable insights into the retention of women in computer science.